Board on Atmospheric Sciences and Climate, Core Support

9316824 Dwoskin This award will enable the National Academy of Sciences' Board on Atmospheric Sciences and Climate to continue to provide advice and guidance to Federal Agencies on needs, opportunities and priorities in atmospheric sciences research. The funding is shared by the agencies of the FCCSET subcommittee on Atmospheric Sciences and covers the following subareas of atmospheric sciences: Meteorology Atmospheric Chemistry, Solar-Terrestrial Physics and Climate.